Full-Scale Development: Secrets of the Universe

This research and development project would inform and engage audiences (especially middle school age girls) about the fundamental research under investigation at the Large Hadron Collider (LHC) at CERN in Geneva, Switzerland. A research plan and summative evaluation will fill a gap in what is known about the public's perception and understanding of the LHC/particle physics and include studies on girl's interest and engagement.

Deliverables include a 40 minute giant screen film (3D/2D), full dome planetarium film, an interactive theater lobby exhibit, website, mobile app, materials and professional development workshops for educators. The giant screen film will use scientific visualizations and artistic interpretation to reveal compelling scientific stories recreating conditions following the Big Bang and the discovery in 2012 of the Higgs boson. CERN is providing unprecedented access to the collider and particle detectors including filming inside the 17 mile long underground tunnel while it is closed for upgrades in 2013-2014.

There are 8 partner science museums (7 with planetariums) that will show the film/exhibit and serve as sites for research, evaluation, and outreach to underserved audiences ( Adventure Science Center, Carnegie Science Center, The Franklin Institute, Liberty Science Center, OMSI, Orlando Science Center, the Smithsonian, and the St. Louis Science Center). Additional distribution/marketing channels include giant screen theaters, planetariums, DVD, and social social media. Launch is targeted for 2016.

Learning outcomes will focus on increasing awareness and interest in the LHC and increasing young people's engagement and excitement about the nature of scientific discovery. The research on girl's engagement and interest in physics will fill a gap in field.

The project deliverables are projected to reach large audiences through national distribution of the giant screen film, the planetarium show, the exhibit, 3D/2D Blu Ray and DVDs, and access on computers, tablets, and other mobile devices.